NSF Young Investigator Award

9357986 CARRASCO-QUEIJEIRO This award provides support to Dr. Marisa Carrasco-Queijeiro under the National Science Foundation's Young Investigator Awards program. The objective of this program is to recognize outstanding young faculty in science and engineering, to enhance the academic career of recent PhD recipients by providing flexible support for research and educational activities, and to foster contact and cooperation between academia, industry, and institutions that support research and education. Dr. Swain has already made significant research contributions to the field of perceptual/cognitive psychology, and she has the potential to become a leader in academic research and education. This award will allow the investigator to pursue her research interests in the area of visual perception. Visual perception is thought of as a process involving analysis and synthesis. The brain analyzes visual stimuli into discrete components, which are later synthesized into the perceptual wholes we apprehend. Dr. Carrasco-Queijeiro's research is in the area of "Visual Search", which seeks to characterize the basic features of analysis and to trace the steps of the subsequent synthesis. She will conduct a series of psychophysical experiments in which the physical properties of the stimuli and the experimental tasks will be manipulated, so as to allow her to compare and contrast current cognitive models of visual search, and to develop an alternative model which would better take into account the biological constraints of the visual system. Through this approach, she will be able to understand whether (or how) the early stages of coding of visual processing interact with attentional processes. The goal of the research is to contribute to our understanding of the relationship between the psychological and physiological phenomena involved in some basic processes of visual perception, and the impact of this understanding on models of visual attention. This approach promises to integrate central facts about the integration of the nervous system with behavioral and cognitive properties of visual search. ***